Development of a Museum Project on Natural Science in the Colorado Plateau, with an Emphasis On Educating Native Americans of the Region

The Museum of Northern Arizona proposes to initiate a two-part project in natural-science education on the Colorado Plateau, with a strong focus on the Native Americans of the region, and especially their children. The project involves, one, the installation of modern geology and biology exhibits that are highly relevant for understanding the natural history of an important area and, two, the development of two closely associated new educational outreach programs, one based on well designed kits for school use and the other involving the training of teachers in the use of those kits.